Rapid Prototyping Lab

Graduates from both the Department of Manufacturing Technology and the Department of Mechanical Engineering often go into industrial positions in which they are directly involved with the usage of computer-assisted design/computer-assisted manufacturing equipment. Students in both of these departments are required to take courses that include use of CAD software. The goal of this project is to enhance several CAD-related courses by providing the equipment necessary to produce physical prototypes. The previous content of these CAD courses has included instruction in both two-dimensional and three-dimensional modeling concepts. This project is expanding the capabilities of the CAD laboratories to include the capacity to produce actual physical prototypes of three-dimensional models described in a CAD system. This gives students quick feedback regarding the validity of their designs by allowing them to examine, hold, and in some cases, assemble and test models of complex three-dimensional objects. This equipment exposes students to new concepts and technologies that are becoming prevalent in industry today. Since the institution has not previously had a rapid prototyping system, this new equipment is also fostering greater cooperation among various departments and should generate opportunities for interdepartmental projects.